A Coordinated Experimental and Computational Modeling Investigation of Native Defects in Undoped, Nitrogen-Doped and Chlorine-Doped ZnSe and ZnMgSe Alloys Grown by Molecular..

9806299 Myers This project aims for greater understanding of point defect formation in ZnSe and associated alloys including a fundamental understanding of the nature of the point defect(s) and point defect complexes as well as defect origins during growth. Initial studies will focus on ZnSe, with subsequent efforts including ZnMgSe alloys. The approach combines molecular beam epitaxial growth; quantitative measurement of point defect concentrations in epilayers using electron paramagnetic resonance; detailed photoluminescence studies; and, in parallel with the experimental techniques, a first principles approach to modeling defects in ZnSe. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices. Experimental tools are now available to allow atomic level observation of materials defects and their origins which when better understood will allow advances in both fundamental science and technology. The basic knowledge and understanding gained from the research is expected to contribute to improving the performance and stability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***.